Solid-State Sensors & Actuators Workshop-Participant Support(Workshop June 13-16, 1994), Hilton Head, South Carolina

9408352 Muller Support is requested to assist academic personnel (particularly younger researchers) who are engaged in sensor and actuator research by providing either wholly or partially for travel and subsistence at the 1994 Sensor and Actuator Workshop which is to be held at Hilton Head, South Carolina for June 13-16, 1994. The cost of attending this important Workshop is often not included in the budgets of some, particularly younger, researchers. These are precisely the persons whose presence is likely to produce long-range impact for the engineering and scientific communities in the United States. ***